Collaborative Research: Research Initiation: Contextualizing Engineering Science Courses by Teaching History and Judgement

Engineering programs have long struggled with balancing curricula that are rigorous enough to prepare graduates to be capable practitioners and educational experiences that are engaging enough to retain undergraduate students. Data suggests that a little more than half of students leave a program after their first or second year and that many of those students came to dislike engineering or lost interest in the profession. These findings suggest a mismatch between what incoming students think engineering practice is and what message they receive during their first two years of a program. Unlike the other major professions with which engineering shares a common set of principles (e.g., medicine and law), there are very few examples of engineering in popular American culture, and fewer still that are realistic. Limited studies consider the impacts of enculturating students via the history of the profession or the impacts of explicitly connecting engineering science with design, especially with respect to students’ perceptions of engineering practice. This work will aim to understand how contextualizing engineering practice can improve students’ intentions to persist in a discipline that historically struggles to retain them, particularly those identifying as underrepresented minorities and women. This work will contribute new knowledge about students’ understanding of what it means to practice engineering and how that understanding changes with exposure to different types of contextualization (e.g., historical or technical). It will also contribute new knowledge about how undergraduate students relate engineering science and engineering judgement with practice as professionals. With this understanding, changes can be made to undergraduate engineering education to better retain these underrepresented students and broaden the diversity of the engineering workforce.

Engineering science courses that occupy the middle two years of a program most often utilize traditional lecture-based pedagogy and simplified close-ended textbook problems, which do not typically allow students to engage in the kind of decision-making that is essential to developing engineering judgement. Students recognize these problems are not authentic representations of engineering practice, and even new graduates leaving a program have a tenuous grasp on the nature of engineering practice. This work proposes a new pedagogy intended to provide students with context for how engineering science concepts are implemented in authentic engineering practice and how engineering judgement is essential in that implementation. Moreover, this work will aim to employ another pedagogy to provide a more holistic contextualization of engineering practice by introducing students to the history of the profession. This work will advance the field of engineering education research by answering the research question of how students’ perceptions of engineering practice develop as they progress through a program, and how these pedagogies shape that progress and/or reframe students’ beliefs about engineering. The proposed research will employ a mixed-methods approach, specifically a triangulation methodology that prioritizes qualitative data collections. Primary findings will come from interviews with students as they progress through their middle two years in an engineering program at a large research-intensive public university. Based on students’ accounts, a set of case studies will be developed from the interviews about how students’ perceptions of engineering practice change longitudinally and whether the aforementioned educational activities influence that trajectory. In addition, a larger group of students will be invited to participate in surveys, which will enable drawing inferences from a broader sample about intention to persist as well as baseline levels of familiarity with engineering in general. Outcomes expected to inspire changes in undergraduate engineering curricula include descriptions of how students’ perceptions of engineering practice develop, how the proposed pedagogies influence those perceptions, and how contextualization can contribute to students’ intentions to persist in the major into the workforce.